Workshop on the Evaluation of Music Information Retrieval (MIR) Systems

Proposal: IIS-0340597
Institution: University of Illinois
PI: John Downie
Title: Workshop on the Evaluation of Music Information Retrieval

This proposal is to convene a workshop as part of the 26th Annual International ACM SIGIR Conference to be held in Toronto this summer. Music information Retrieval (MIR) is a rapidly emerging research area requiring new expertise and approaches. The amount of digital music information being created and often available via the internet has been increasing at exponential rates and has promoted new approaches within the field of information retrieval to deal with this unique content. The SGIR Conference is a major meeting on information retrieval and affords many the opportunity to participate in the workshop who might otherwise not be able to attend. Two earlier meetings in July 2002 (JCDL) anb October 2002 (ISMIR) have provided valuable background for this workshop and demonstrated the intense and growing interest in music information retrieval.